Experimental Studies of Bargaining and Neutral Decision-Making: A Research Proposal

9225016 Olson This study investigates the impact of different arbitration systems, the role of uncertainty, and the impact of bargaining information on negotiator behavior and dispute rates. The study consists of bargaining experiments where pairs of negotiators bargain over the division of a sum of money for a fixed number of periods. The experiments vary the type of arbitration procedure used if an agreement is not reached and the information available to the negotiator about the arbitration process. One experiment compares negotiator behavior under final offer and two types of conventional arbitration. The conventional arbitration treatments differ in the relative weight the arbitrator places on the offers of the parties and the facts of the case. The subjects' uncertainty about the beliefs of the arbitrator is also manipulated. A second experiment focuses on the role of new information and post-offer bargaining under final offer arbitration. The results of these studies will contribute to our understanding of disputes across a variety of settings and the role of dispute settlement procedures in the resolution of disputes. ***